A Proposal to Plan for Dimensions of Dysphoria in African American Women

This project is a Minority Research Initiation Planning Grant to support an African American anthropologist to consult with leading experts in the anthropology of emotions, in order to help her do a pilot research project on the African American women's cultural construction of dysphoria, or depression. The project involves interviewing groups of women on their understanding of dysphoria and their techniques for coping with it. The planning grant is designed to aid the applicant in preparing a full- fledged research proposal on this subject. This sort of project is important substantively, to further understanding on sub- cultural variation in how people conceptualize moods and emotions, and as a technique to increase the representation of minority scientists in the US.